Current Trends in Dynamical Systems and Bowen's Legacy

This award provides funding for US participation in the conference "Current Trends in Dynamical Systems and Bowen's Legacy" that will be held from July 30- August 4, 2017 at the University of British Columbia.

The conference focuses on recent developments in Analysis, especially in the field of dynamical systems. A number of distinguished mathematicians have agreed to attend and speak at this conference. This award gives early career researchers, members of underrepresented groups, researchers not funded by NSF and the like an opportunity to attend and participate in this conference. The organizing committee will strive to make this funding opportunity known to target groups through a number of different activities. More information will be made available at:

http://www.pims.math.ca/scientific-event/170730-ctdsmlrb-0